Robust Parameter Design: Modeling, Analysis and Layout Techniques

9704649 Chien-Fu J. Wu Robust parameter design employs statistical methods and engineering ideas to improve the quality of a product or process by making it less sensitive to uncontrollable variation. It has had a big impact on manufacturing as demonstrated by many industrial case studies. The main focus is to study modeling and analysis of data from parameter design experiments and layout techniques for efficient experimental planning. First, three aspects of robust design with static characteristics are considered: 1. theoretical characterizations of robust factor settings and their relation to commonly used graphical methods; 2. loss due to poor quality using very general loss functions, especially where no adjustment factor can be identified; and 3. assessment of measurement systems that collect ordered categorical data. A related problem to the last aspect is the modeling and analysis of ordered categorical data from designed experiments when some of the data responses are misclassified. Next, two aspects of robust parameter design with functional characteristics (i.e., whose response is a functional relation, instead of a single value) are studied: comparison of generalized signal-to-noise ratio based method to a response function modeling method that employs a two-stage modeling, and the modeling and analysis of degradationcurves from experiments for robust reliability improvement. Finally, efficient planning of experiments is studied for parameter designswith static characteristics and with signal-response systems. Novel theoretical and computational tools are employed to solve this problem. Robust parameter design employs statistical methods and engineering ideas to improve the quality of a product or process by making it less sensitive to uncontrollable variation. It has been successfully implemented as demonstrated by many industrial case studies. The investigators study the use of robust parameter design in more complicated situations than considered to date, thereb y, extending the scope of robust parameter design. Robust parameter design uses experiments whose two major issues are how to properly choose the experimental conditions (i.e., experimental plans) and how to model and analyze the data (i.e., analysis) to identify the important factors and recommend the optimal settings for these factors. In Part I, (i) theoretical characterizations of robust factor settings are obtained and related to graphical methods, (ii) new strategies are developed for minimizing loss due to poor quality as measured by very general loss functions, (iii)assessment and analysis of measurement systems that collect ordered categorical data. In Part II, (i) two methods of analyzing signal-response systems (e.g., gas gauge where the signal is the amount of gas in the gas tank and the response is the reading from the gas gauge) are compared (ii) general models and methods for analyzing degradation curves are investigated, (e.g., fluorescent light intensity decreases over time). Using degradation data is strategic because information about reliability can be obtained sooner and more efficiently. The research results in Part II will be tested on an automobile project. In Part III, the problem of efficient and economic planning of experiments is studied for parameter design problems.